Long-term Dynamics of the SW Indian Monsoon: New High- resolution Paleoclimatic Data from Tibet

Abstract ATM-9410491 Liu, Kam-biu Louisiana State University-Baton Rouge Title: Long-term Dynamics of the SW Indian Monsoon: New High- resolution Paleoclimatic Data from Tibet This award supports a U.S.-China collaborative project to produce several new high-resolution paleoclimatic records from the Tibetan Plateau for the last 20,000 years. These records are vital to an understanding of the long-term dynamics of the SW Indian monsoon, which is an important component of the global climate system. This effort will reconstruct the climatic and vegetational history of the Tibetan Plateau by means of pollen, isotopic, and paleolimnological studies and AMS-dating of sediment cores to be retrieved from small lakes in the southeastern part of Tibet, a region of steep climatic and vegetation gradients. These high- resolution paleoclimatic records will be used to clear up disagreements between the few existing Tibetan Plateau records, and to test a number of hypotheses.